NSF Travel Support for students attending 7th IEEE Vehicular Power and Propulsion Conference (VPPC 2011), September 2011, Chicago, Illinois

This proposal provides NSF travel support for 20 students attending the 7th
IEEE Vehicular Power and Propulsion Conference (VPPC 2011), to be held in Chicago,
Illinois, September 6-9, 2011. The IEEE VPPC is the flagship conference of IEEE in the
areas of vehicle power and propulsion. The VPPC 2011 is co-sponsored by IEEE Power
Electronics Society (PELS) and IEEE Vehicular Technology Society (VTS). This year
the conference will feature the theme of powering sustainable transportation.